AGS-FIRP Track 2: Hurricane Boundary Layer Observation Study

Understanding the near-surface layer of the atmosphere in a hurricane, known as the hurricane boundary layer, is critical to forecasting and mitigating impacts to safety and property. The hurricane boundary layer helps to control how quickly a hurricane will weaken over land and it contains small-scale features that locally enhance damaging wind gusts. This project will analyze decades worth of mobile radar data from hurricane landfalls, and conduct a new small field campaign, to better answer questions about small-scale processes in hurricane boundary layers. The work will help to build national resilience to hurricane impacts and train early-career scientists with hands-on research activities.

The research team has previously collected mobile radar data from 20 U.S. hurricane landfalls. Through this project, the data from these deployments will be analyzed in-depth to answer questions about the hurricane boundary layer (HBL) and small-scale structures in the wind field. Specifically, the analysis will focus on: 1) Hurricane boundary layer rolls and their relation to turbulent kinetic energy and other fluxes, 2) Coherent structures in the HBL, including tornado-scale vortices, 3) The effect of tall structures on the wind field, and 4) How the HBL structure changes at landfall. In addition to analyzing previously collected data, the team plans at least one new hurricane landfall deployment to collect a dense amount of data to help address questions about the HBL on-shore transition and turbulence.